Microelectromechanical Engineering Research Program

The Electrical, Mechanical and Chemical Engineering Departments and the Materials Science and Physics Departments will participate in this research activity to gain a fundamental understanding of the properties of microelectromechanical devices and systems so as to be able to carry out experimental research. In addition, this group will conduct research to develop improved process technology for fabrication of three dimensional microcomponents and the design of a demonstrative micro-control system. This research program is organized into three components: o mechanical characterization of micro-components made of semiconductors, metal and ceramics, including static, dynamic fatigue, and tribological properties; o development of improved dry etching and multiple layer fabrication processes and studies of assembly techniques of microsystems and; o study and design of a one dimensional displacement control system for biomedical and applications to probe neural activities or as a tool for microsurgery in the brain.